Presidential Young Investigator Award: Computational Fluid Dynamics and Aerothermodynamics

Dr. Eberhardt intends to pursue the development of new algorithms suitable for such important problems as scramjet propulsion, aerothermodynamic heating during assent, and reentry. In particular, he intends to extend and improve my fluid dynamic codes which are designed to handle both chemical equilibrium and nonequilibrium effects and thermal nonequilibrium. These codes provide a unique capability of being able to capture all physical discontinuities within a flow, such as shock waves and slip surfaces, while maintaining strong conservation. The immediate extensions will expand them to multi-dimensions and to include diffusion effects which will allow heat transfer calculations. Code verification with existing shock tunnel data will also be an important aspect of the research. The ultimate goal is to produce a robust, reliable, efficient code for determining the complete aerothermal environment of hypervelocity vehicle designs.